Calculus of variations on rigid elastic structures

Pakzad
DMS-0907844

This work is a part of a long-term project of the
investigator and his collaborators to study the elasticity
properties of materials through methods of calculus of
variations. Here, the focus is on situations when the elastic
bodies exhibit some sort of rigid behavior. In this manner, the
study of geometric properties of structures, e.g. the properties
of various spaces of isometries and infinitesimal isometries of
2-dimensional surfaces, comes to the fore. This differs from
classical differential geometry in the weaker regularity of the
given surface or of the deformations. A first objective is to
identify and rigorously derive variational theories for thin
shells from the 3-dimensional theory of nonlinear elasticity
through Gamma-convergence methods. The derived theories
naturally depend on the scaling regimes of the elastic energy or
body forces in terms of shell thickness. In this context, the
investigator works on problems involving various spaces of weakly
differentiable isometries. In parallel, properties of the
derived theories, such as multiplicity and regularity of
solutions, or their dependence on the geometry of the shell, are
investigated. Another line of investigation is the study of
non-stress-free configurations observed e.g. in the growth of
leaves. A tangentially heterogeneous 3-dimensional nonlinear
elastic model is studied and the Gamma-limit approach is used to
reduce the dimension and analyze the model. Quantitative
rigidity estimates also are studied as a strong analytical tool
in tackling these variational problems.

The investigator studies different mechanical phenomena
under the unifying umbrella of the nonlinear elasticity theory.
Elastic materials exhibit qualitatively different responses to
different kinematic boundary conditions or body forces. This
fact has given rise to many interesting questions in the
mathematical theory of elasticity. The main goal of this theory
is to explain various, apparently different, phenomena in terms
of some shared mathematical principles. The variational approach
to the nonlinear theory has been very effective in dealing with
these questions. It has also been helpful in rigorously deriving
models for elastic shells or plates pertaining to different
scaling regimes of the body forces. In the latter context, the
strength of this approach lies in the fact that it can predict
the appropriate model together with the response of the elastic
plate for the given scaling of forces or kinematic boundary
conditions without any a priori assumptions other than the
general principles of the 3-dimensional nonlinear elasticity.
Another feature of this approach is that it can lead to new
models that were not previously considered.